Metal-Catalyzed Oxidation of Hydrocarbons with O2: Mechanisms and Applications

In this project, Professor Shannon Stahl of the Department of Chemistry at the University of Wisconsin-Madison is investigating the chemical processes used to transform hydrocarbons into essential chemical building blocks using oxygen from the air. Many everyday materials, including plastics, nylon, and pharmaceuticals, rely on these vital chemical transformations, yet the detailed pathways behind how these reactions occur remain poorly understood. By using specialized, modern tools to probe these chemical reactions as they happen, this research aims to establish more efficient catalytic processes. The broader impacts of this work are highly significant for both the economy, as establishing this fundamental understanding will expand the use of oxygen to convert diverse feedstocks—such as domestic natural gas, biomass, and post-consumer plastic waste—into high-value materials. This work will enhance U.S. manufacturing competitiveness and national security by enabling the domestic production of chemical intermediates, thereby reducing reliance on concentrated foreign petrochemical supply chains. Furthermore, the project incorporates a dedicated mentoring plan designed to train and strengthen a highly skilled scientific workforce equipped to address future national energy and chemical manufacturing challenges.

This research focuses on the fundamental mechanistic elucidation of homogeneous, metal-catalyzed aerobic autoxidation of hydrocarbons. Despite the immense industrial scale of radical-mediated processes, such as the Co/Mn/Br-catalyzed Mid-Century process to convert para-xylene to terephthalic acid, significant knowledge gaps persist regarding catalyst speciation, metal-radical interactions, and the molecular origins of reaction rates and selectivity. This project aims to address these deficiencies through three complementary research objectives: (1) the mechanistic characterization of Co/Mn/Br-catalyzed oxidation of toluene and other methylarenes, evaluating catalyst speciation and the ultimate fate of the bromide cocatalyst; (2) the mechanistic characterization of Co/Mn/Br-catalyzed oxidation of cyclohexane, linear decane, and branched alkanes to decipher site-selectivity and C–C bond cleavage pathways; and (3) the development of next-generation catalytic systems for the highly selective aerobic oxidation of commercially relevant substrates, such as lignin-derived materials and waste plastics. By integrating advanced operando techniques—including time-resolved X-ray absorption spectroscopy (XAS) and UV-visible spectroscopy implemented within a specialized membrane-flow reactor, alongside comprehensive gas chromatography—this project will map intricate reaction networks, directly observe transient metal intermediates, and establish a predictive framework for rational catalyst design in radical oxidation chemistry.